The Topology of Symplectomorphism Groups

Abstract

Award: DMS-0604769
Principal Investigator: Dusa McDuff

Symplectic manifolds all look alike at small scales, which means
that they have many symplectomorphisms, that is, structure
preserving self-mappings. These form very interesting groups,
which one can try to understand from a topological/algebraic
viewpoint as well as a geometric viewpoint. McDuff has been
studying their structure for several years, and proposes to
continue this work. One project is to extend her analysis (in
previous joint work with Abreu) of the symplectomorphism group
for rational/ruled manifolds of dimension four to similar
manifolds in higher dimension. Many new problems arise here
because the manifold is no longer fibered by pseudoholomorphic
curves. She proposes to study the internal structure of
symplectic manifolds (such as spaces of embedded symplectic balls
or Lagrangian tori), to see how this is reflected in the
structure of the group of symplectomorphisms. She also proposes
a joint project with Hofer, which would develop a theory of
branched manifolds that could be used in an equivariant version
of the new polyfold theory.

In order to understand our physical world it is important to
develop a variety of ways of measuring objects in space. The
most familiar is the measurement of distances and angles, which
leads to the usual notions of geometry. This proposal concerns a
different kind of geometry, called symplectic geometry, that is
based on measurements of two-dimensional objects. As first
discovered by Hamilton over 150 years ago, many spaces of
interest to physicists have this kind of structure. For example,
it underlies the equations of motion of energy-conserving systems
such as the planetary system, since here each position coordinate
is paired with a momentum coordinate to form a basic
two-dimensional object. Symplectic geometry also has much
relevance to modern theories of physics such as string theory and
mirror symmetry. In recent years there has been a very important
exchange of ideas between mathematics and physics that is largely
expressed in symplectic terms. Hence it is very important to
further our understanding of the fundamentals of symplectic
geometry. This project will develop our basic knowledge in this
area, concentrating particularly on understanding the properties
of the group of motions that preserve this geometry. It will
exploit the new invariants coming from physics (such as quantum
cohomology and symplectic field theory) in order to understand
the topological structure of these groups. Besides its
theoretical interest, the new symplectic geometry has led to the
development of better methods for computing Hamiltonian motions
such as the orbit of a satellite.